1998 Gordon Research Conference on Nuclear Chemistry

The objective of the Gordon Research Conference on Nuclear Chemistry is to provide the international community of nuclear scientists, interested in the reaction mechanisms between nu clei, with a unique forum in which the newest developments and ideas can be presented and subjected to detailed criticism. The participants are a select group who are engaged in research from the lowest possible energy (at and below the Coulomb barrier) to the highest energy presently being studied (at CERN). The broad range of expertise and high quality of selected group, provides a broader and superior perspective for a critical evaluation of the central science and its potential impact than the more common topical meetings.